Mathematical Sciences: Algebraic Transformation Groups

9701200
Abstract: This project consists of two loosely connected parts. The
first is to study invariant differential operators and spherical
functions on multiplicity free representations. One obtains
Capelli-type identities which lead to a new kind of symmetric
polynomials. The second part is to study Weyl groups for Hamiltonian
manifolds. This might lead to a proof of the Delzant conjecture
concerning the classification of multiplicity free Hamiltonian
manifolds. A further goal is to begin a systematic study of
Hamiltonian algebraic varieties.
-
The background of the project is the study of highly symmetric spaces
like spheres or hyperbolic spaces. It is known that a significant part
of the geometry of these spaces is described by a certain finite group
of internal symmetries, called the little Weyl group. The aim of the
project is to investigate two different aspects of the little Weyl
group. The first is its influence on invariant differential operators
which in certain cases lead to beautiful identities generalizing those
found by Capelli in the 19th century. The second aim is to study the
little Weyl group of Hamiltonian manifolds. These manifolds arise
naturally if one formalizes symmetry of a classical mechanical system,
like a top or a planetary system.